GEM: Detailed Study of the Magnetic Storms Selected for GEM Inner Magnetosphere and Storms Campaign

This project will extend the results of the PI's previous model for energetic electrons at geosynchronous orbit to cover the entire inner magnetosphere from 3-10 R. It will also determine the physical basis of the correlation between the solar wind speed and electron flux enhancements. The magnetic storm events chosen for detailed study by the Geospace Environment Modeling (GEM) program campaign on the Inner Magnetosphere and Storms will be used to compare the results of the modeling effort to the measured data. Particular emphasis will be placed on the question of whether the transport and energization of the electrons can be accounted for as a result of diffusion or whether other mechanisms are required.